Oxidation of Chlorinated Ethenes

An experimental program to study oxidation chemistry of selected chlorinated hydrocarbons under conditions similar to those in an incinerator afterburner will be established. The species of interest are the chlorinated ethenes which are "appendix VIII" hazardous wastes and have been measured as major intermediates during the combustion of chlorinated hydrocarbons. The experiments will be conducted at atmospheric pressure in a turbulent flow reactor over the temperature range 700 to 1100 K for selected fuel lean equivalence ratios. Gas chromatographic analysis will be used to measure the reaction intermediates and products associated with the oxidation process. Results from these studies will be used to identify stable intermediates formed during the oxidation of the reactants and to develop chemical kinetic models valid in this temperature regime.